Early Learning and Technology for At-Risk Children

This planning proposal funds the design a study on the influence of information and computer technology based learning activities on the social behavior and academic achievement of urban, impoverished, minority children. The project will use an ongoing collaboration with the St. Louis Public Schools and an ongoing project that introduces technology to children in primary grades. The work envisions the use of technology in support of appropriate behavior and learning in primary (pre-K through 2nd grade) classrooms. The work capitalizes upon on-going efforts to both study and improve the level of teaching and learning in select SLPS classrooms, but requires substantial preparation in order to undertake a rigorous study to advance the knowledge base and have implications beyond the specific classrooms involved.